Informedia: Integrated Speech, Image and Language Understanding for Creation and Exploration of Digital Video Libraries

This project - the Informedial Project - establishes a large on- line digital video library by developing intelligent, automatic mechanisms to populate the library which allows for full content- and knowledge-based search and retrieval via desktop computer and metropolitan area networks. The distinguishing feature of the technical approach is the integrated application of speech, language and image understanding technologies for efficient creation (acquisition, recognition, segmentation, and indexing) and exploration (query, search, retrieval, and display) of the library. Also, a network billing server will be implemented to study the economics of charging strategies and incorporate mechanisms to ensure privacy and security.